Curation of Silurian and Upper Paleozoic through Tertiary Fossil Collections at the Milwaukee Public Museum

This renewal project will complete the curation and computerization of the invertebrate fossil collections at the Milwaukee Public Museum. All specimens will be assigned locality numbers and data sets will be prepared with detailed information on locality, geologic age, stratigraphic position, and constituent fauna. These collections are of particular value because they contain the largest available collections of southeastern Wisconsin Silurian fossils. Many of the specimens are the result of collecting efforts by geologists early in this century from localities that can no longer be recollected because they now have buildings on them or they are quarries that are now water- or land-filled. The project will protect the integrity of the collections and assure that they will be preserved and made available to the scientific community for future study.